Expedited Novel Research: Thin Film Optical Cricuits

The principal investigators have proposed a novel idea of using nonlinear 2-d thin film to obtain circuit integration via reversible nonlinear interface as a computing element (optical gate). The investigators have already demonstrated these concepts by designing a thin film binary half-adder which has great potential for extending the work to both memory and crossbar designs and hence to more complex computing circuits. Ion or laser-enhanced chemical vapor deposition or similar techniques will be used to fabricate these novel structures, which involves the placing of strips of different material on the same horizontal plane to the order of 10-50 micrometers.